Stochastic General Recognition Theory

Stochastic general recognition theory is a precise mathematical formalization of several ideas that have been popular in perceptual and cognitive psychology for many years. One of these is that repeated exposure to any complex stimulus does not always elicit the same perceptual state; a second is that the perceptual system that analyzes such a stimulus is composed of several mutually interacting channels that operate in parallel. The theory makes specific numerical predictions about response probabilities and response times in a wide variety of cognitive and perceptual experiments, such as identification and categorization. In addition, it has the potential to account for the effects of varying stimulus exposure duration, the masking of one stimulus with another, and the effects of short interstimulus intervals. This research will include a number of experiments whose results are predicted by the theory; thus, these experiments will provide a rigorous test of the theory. One set of experiments will investigate how the structure of a category affects categorization time; another set will investigate how different types of interactions during the perceptual processing of separate stimulus components affect categorization and identification performance. These experiments will increase our understanding of how humans identify and categorize complex patterns. This, in turn, may improve our understanding of some reading and learning disabilities and may also lead to more accurate pattern recognition by machine.